Seattle Innovation Symposium

This award supports a conference - the Seattle Innovation Symposium -- that will develop an understanding of how important IT innovations are developed and disseminated. The object is to discover ways to increase the speed of technology absorption and accelerate productive use of the new technologies. It will convene leading researchers (multi-disciplinary academics, PhD students studying innovation, and company innovators/entrepreneurs) to share their intellectual assets and experiences in identifying the emerging technologies that have potential to turn into billion dollar market segments, and to explore alternative organizational structures on how these promising technologies can be further developed to meet market needs and create economic benefits.

The broader impact of the symposium is to create a multi-disciplined network of academic and company innovators that can continue to work collaboratively on individual research projects required to extend the knowledge base on innovation and to shorten the time that it takes for new innovations to make a positive impact on the economy.